Workshop on Signaling, Gene Expression and Cell Fate; Fall 2003; Aspen, Colorado

0326520
Olinto

One of the most interesting aspects of cell biology -- and the main
subject of the Workshop discussed in this proposal -- is the study of
how external or internal signals modify gene expression and affect
the commitment to different cellular fates. Recent progress in
experimental methods in biology, combined with computational tools
developed by physical/mathematical scientists, provides a new way of
analyzing the underlying complex signaling and genetic networks.

The workshop will take place during the period August 18 - September
7, 2003, at the Aspen Center for Physics in Aspen, Colorado, and has
two principal aims: (a) to bring together physicists already working
on biology-motivated research with key biologists in order to
strengthen existing collaborations and foster new ones; and (b) to
introduce interested physicists to problems at the forefront of
biological research. The Aspen Center for Physics provides an
informal and stimulating environment ideal for such interactions.
Moreover, the Center has played a leading role in promoting
interdisciplinary Biology research and is currently planning to
dedicate one week each winter and three-to-six weeks each summer to
biology-motivated conferences and programs.